Isomorphic Theory of Banach Spaces

DMS-9970547

The purpose of this proposal is to study problems in geometric
Functional Analysis. The first problem is related to the notion
of distortion: Does every Banach space either contain a classical
non-distortable space or an arbitrarily distortable subspace?
The second problem is related to the concept of primeness: Is
Schlumprecht' space prime? Also it is proposed to attempt to
construct a space on which every operator is a compact perturbation
of a multiple of the identity. Finally the proposer will work on
constructing a Hereditarily Indecomposable weak Hilbert space.

Mathematicians must study the geometry of infinite dimensional
Banach spaces since these spaces provide the natural framework
for studying non Euclidean geometries, Differential Equations,
Quantum Theory etc. The four projects presented above are of
importance in the theory of Banach spaces and its applications.
The "distortion problem" which is concerned in this proposal
is a fundamental question in the geometry of Banach spaces.
Also the property of "primeness" is very important for
understanding the structure of a Banach space and its components.
The third problem of this proposal is of great significance
in Operator Theory since it will shed light into the famous "Invariant
Subspace Problem". The solution of the fourth suggested problem
will be of great interest to Physicists if the Quantum Theory
can be modeled in the space that it is proposed to construct.